The Effect of Limited Sample Sets in Pattern Recognition

This research will investigate the effects of limited sample sizes on the design of statistical pattern recognition systems. Although an important and fundamental problem, relatively little is known regarding the relationships between dimensionality, distribution, and the number of samples required to design effective classifiers. In practice, use of a finite design set results in classifiers with performance that is degraded from their potential performance. The goals of this research are to (1) provide an analysis of the effect of the finite sample set on the design of pattern recognition systems, and (2) to find new classifier design procedures that most effectively use the available design set, and extend these results to other pattern recognition problems such as feature extraction or clustering.